US-Austria Cooperative Research On Stabilization and Controlof Distributed Parameter Systems

This award supports John A. Burns and Robert Wheeler of Virginia Polytechnic and State University (VPI) to collaborate in engineering systems research with Wolfgang Desch and others of the Institute for Mathematics of the University of Graz, Austria. Their collaboration focuses on two areas: stabilization of viscoelastic systems, and preservation of system properties under approximation. Their joint efforts benefit from expertise in different aspects of these problems. The VPI group has considerable experience in applications, modelling and computation (aerodynamics, large space structures, visco-elasticity and large scale computing), as well as a strong background in complex analysis and classical analysis. The researchers in Graz have a long history in semigroup theory, control theory and approximation theory. By their very nature, numerical analysis and control theory are interdisciplinary subjects; they require interaction of several fields of mathematics and engineering. The complementary expertise of the two research groups in modeling, computation and analysis virtually assures more productivity than independent efforts. They are focusing on several control systems of current interest for aerospace vehicles and other systems.